RUI: ATP Regeneration Based on Immobilized Polyphosphate Kinase

The purpose of this proposal is to develop an immobilized enzyme system for ATP regeneration using polyphosphate kinase from Escherichia coli. The objectives are fourfold. The first is to increase the cost-effectiveness of the enzyme purification process by improving its speed, capacity and yield. The second is to immobilize polyphosphate kinase on different insoluble supports so as to identify the most viable enzyme conjugates. The third is to construct packed bed reactors and determine the performance parameters in continuous-flow systems. The fourth objective is to determine kinetically the optimal operating parameters for the regeneration process. The work provides an excellent opportunity for undergraduates to gain hands on experience in the development of a process that may become economically important in biotechnological operations.